CPS: Medium: Collaborative Research: Remote Imaging of Community Ecology via Animal-borne Wireless Networks

This project will construct a wireless network of animal-borne embedded devices that will be deployed and tested in a biologically-relevant application. The networked devices will provide not only geo-location data, but also execute cooperative strategies that save battery-life by selectively recording bandwidth-intensive audio and high-definition video footage of occurrences of animal group behavior of interest, such as predation.
This project comprises three concurrent and interdependent research themes. The first is the investigation of methods to design and analyze the performance of distributed algorithms that implement autonomous decisions at the mobile agents, subject to communication and computational constraints. The second will pursue data-driven fundamental research on the modeling of animal group motion and will promote a formal understanding of the mechanisms of social interaction. The third is centered on the investigation of methods for hardware integration to build distributed networks of embedded devices that are capable of executing the newly developed algorithms, subject to power and weight constraints.
The results and experience gained in this project will guide the development of effective autonomous systems for the monitoring and protection of endangered species. This project will create undergraduate and graduate research opportunities at all participating institutions, expanding on an existing collaboration between the University of Maryland, Princeton University, and the National Geographic Society. There is the potential for using wide-reaching media resources to disseminate the results of this project to a broad audience. This may contribute to attracting more students to engineering and science.